NSF-ANR: Unravelling the Critical Role of the Extracellular Matrix in the Functions of the Hypothalamus

The ECM-MetaboBrain project seeks to understand how the brain controls hunger, blood sugar, and body weight by studying an overlooked component of brain tissue called the extracellular matrix (ECM). Within this matrix are long sugar-like molecules known as glycosaminoglycans (GAGs), which may play a critical role in how brain cells respond to metabolic hormones such as leptin and GLP-1—hormones that regulate appetite and glucose balance and are major targets of current anti-obesity and diabetes medications. Our recent discoveries suggest that GAGs do not simply provide structural support in the brain, but instead directly interact with hormone receptors on neurons and influence how these receptors function. This project will map these GAG molecules in key regions of the hypothalamus that control metabolism, determine how they affect food intake, body weight and glucose homeostasis in animal models, and investigate how abnormal accumulation of GAGs may impair hormone signaling and reduce the effectiveness of metabolic therapies. By uncovering a previously unrecognized mechanism of communication between the body and the brain, ECM-MetaboBrain could transform our understanding of obesity and diabetes and open new avenues for the development of more effective treatments for metabolic diseases.

This proposal investigates how glycosaminoglycans (GAGs) within the hypothalamic extracellular matrix (ECM) regulate metabolic hormone signaling and energy homeostasis. The hypothalamus integrates circulating metabolic cues through orexigenic (NPY) and anorexigenic (POMC) neurons in the arcuate nucleus (ARH), where receptors for hormones such as leptin, insulin, ghrelin, and GLP-1 coordinate food intake and glucose regulation; disruption of these pathways contributes to obesity and type 2 diabetes (T2D). Recent work from our team identified a previously unrecognized role for the ECM proteoglycan aggrecan (ACAN) in controlling the diffusion and accessibility of circulating metabolic hormones within the ARH. We further discovered that two major metabolic receptors, the leptin receptor (LepR) and GLP-1 receptor (GLP-1R), directly bind GAG polysaccharides attached to ECM proteoglycans, revealing an unexpected mechanistic link between the ECM and metabolic receptor signaling. We hypothesize that hypothalamic GAGs actively orchestrate metabolic hormone–receptor complex assembly at the neuronal surface, thereby regulating receptor signaling, energy balance, and glucose homeostasis, and that pathological ECM remodeling contributes to obesity, T2D, and reduced responsiveness to GLP-1–based therapeutics. To test these ideas, the ECM-MetaboBrain consortium will (1) map hypothalamic GAG expression and determine the in vivo consequences of GAG disruption, (2) define hormone/receptor/GAG molecular complexes, (3) determine how GAGs regulate receptor signaling mechanisms, and (4) investigate how GAG-dependent signaling influences hypothalamic neuronal activity and systemic metabolic regulation. By establishing the ECM as an active regulator of metabolic signaling in the brain, this work could transform our understanding of hypothalamic control of metabolism and identify new therapeutic strategies for obesity, T2D, and related metabolic disorders.